New Directions in Civil Engineering Research for Undergraduates

Undergraduate research experience is available in all disciplines within civil engineering in coordination with sponsored research conducted in the department. Direct research experience is reinforced by the special twice-a-week research seminar and final paper requirements. Appropriate research projects are chosen by the coordination committee. Continuation and expansion of student interest is enforced by yearly visits to regional campuses by the program coordinator and presentation of the students' paper at their home campus student chapters of the American Society of Civil Engineers.